CRB: Predictability of Inbreeding Depression in Insular and Mainland Populations

In natural populations, inbreeding commonly results in offspring with more frequent birth defects, higher mortality, slower growth, lower fertility, lesser disease resistance, and/or other aspects of reduced fitness. This phenomenon, termed "inbreeding depression", is almost universal, but the severity of inbreeding depression varies widely among species and the causes of inbreeding depression are still poorly understood. As increasingly many natural populations are reduced to small, isolated fragments, inbreeding may become common in remnant populations. Whether populations can adapt to such conditions and recover or will suffer an inevitable decline in fitness will be determined by the still unknown number and nature of genes that contribute to inbreeding depression. Populations that have long been small and isolated may be affected less by inbreeding than are large, central populations, because natural selection could have removed deleterious, recessive genes during past episodes of inbreeding in the small populations. However, an earlier study of Peromyscus mice failed to find an association between the severity of inbreeding depression and the historical size of populations. Dr. Lacy proposes to determine whether responses to inbreeding by populations are repeatable, and to test further whether the response of a population to inbreeding can be predicted from knowledge of the population size and amount of genetic diversity it harbors. Genetic variability has been examined in samples of island, peripheral, and central populations of Peromyscus polionotus mice; island populations have much less genetic variability, as would be expected if those populations have been occasionally forced to inbreed in the past. Dr. Lacy will collect mice from three populations (one on an island, one at the range margin, and one in the central part of the range), and create three replicate laboratory stocks from each. Reproductive success, growth rate, juvenile survival, and asymmetry of limb bones (a sensitive measure of developmental abnormalities during growth) will be monitored in experimental inbred and non-inbred matings. Preliminary study demonstrated surprising variation among populations derived from closely related populations in response to inbreeding. By statistically analyzing responses to inbreeding in replicated stocks of three different populations, Dr. Lacy will determine whether the between-stock variation derived from differences in inbreeding depression among wild populations (of importance to all managers of small populations), or from differences arising from sampling possibly much more homogenous natural populations (of importance in establishment of captive stocks and in translocation and reintroduction efforts).